Quantum Field Theories on Algebraic Curves

Abstract

Proposal: DMS-9802574
Principal Investigator: Leon Takhtajan

The project is devoted to the study of quantum field theories on
algebraic curves from complex analytic and algebraic points of view.
In the complex analytic setting the main goal is to develop a
geometric approach for calculating correlation functions of degenerate
primary fields in the two-dimensional quantum gravity and to apply the
chiral action functional for higher genus Riemann surfaces to the
differential geometry of Earle-Eells principal fiber bundle over the
Teichmuller space and to other problems. In the algebraic setup the
goal is to develop, following an idea of E. Witten, a new method in
the theory of algebraic functions of one variable over arbitrary field
of constants using various quantum field theories over algebraic
curves. In particular, for the theory of free bosons this
"field-theoretical" paradigm will provide a new proof of A. Weil's
reciprocity law on algebraic curves. Development of this program will
have a broad impact on the class field theory of fields of algebraic
functions with a possibility to work for algebraic number fields as
well. In the latter case the goal is to derive classical Gauss
quadratic reciprocity law and its generalizations as "conformal Ward
identities" for quantum field theories.

Ideas from physics, originated from the study of surrounding world,
have always played a pivotal role in the development of mathematics.
Recently dramatic progress was made in the study of geometry and
topology in four dimensions by using methods of quantum field theory.
In a sense, special quantum fields on a four-dimensional manifold - a
geometric object in four-dimensional space - turned out to probe its
geometric and topological properties and by measuring their response
one gets a nontrivial information about the manifold. The goal of this
proposal is to develop a similar method for studying algebraic and
arithmetic properties of surfaces and number fields (like the usual
field of rational numbers) by using quantum fields. Many fundamental
properties of these objects are discrete and so it is natural to study
them using quantum theory. In particular, many classical results
about fields of algebraic functions and algebraic numbers, known as
reciprocity laws, can be interpreted as conservation laws (like
conservation of energy) in quantum field theory. The main goal of the
proposal is to develop a new paradigm based on quantum theory for
studying the fundamental laws that are satisfied by the very basic
mathematical objects: algebraic numbers - solutions of algebraic
equations with coefficients being rational numbers, and algebraic
functions - solutions of algebraic equations with coefficients being
rational functions.